A Resolution Analysis System for Time Varying Ionospheric Tomography

In order for ionospheric tomography to reach its potential as a three-dimensional global imaging system, its resolving capability must be increased so that small scale effects and temporal effects can be measured accurately. This proposal is for the development of two key components necessary for achieving such high resolution imaging. This research will develop (1) a thorough resolution analysis system and (2) compensation techniques for unavoidable physical constraints. This project will provide a better understanding of both the ionospheric imaging system and the field of ionospheric tomography.